Scientific Instruments for Undergraduates in Archaeology andPhysical Anthropology

The scientific equipment provided by this award enhances the quality of introductory and advanced courses in archaeology and physical anthropology by enabling undergraduate students to experience hands on use of instruments in the classroom, laboratory and field program settings. Two surveying instruments, a theodolite and an alidade, greatly improve student competence in field situations involving archaeological surveying and mapping and expand the range of their performance to include skill in the use of equipment common to Old World as well as New World archaeology. The microscopes provide laboratory opportunity for students to observe and identify cellular structure and histology of bone tissue and the nature of wear patterns on hominid teeth. Physical anthropology students use the calipers and microscope provided to measure and examine specimens in the search to identify and distinguish different species of human and nonhuman primates. The award will be matched by an equal amount from the grantee.